DIMACS Special Focus on Mathematics and the Foundations of Computer and Information Science

PROJECT SUMMARY
The rapidly changing world of information, communications, and computation is a stimulus for
the development of new models and new concepts lying at the foundation of computer and infor-
mation science and their development will require ever-closer connections with many methods of
mathematics. The PI will investigate the connections between foundational issues in the computer and
information sciences and different branches of mathematics in a series of four "working" workshops
involving both mathematicians and computer scientists, two per year in each of two years. The PIs
will de-emphasize formal talks and emphasize discussion time and opportunities to explore new
potential collaborations between computer scientists and mathematicians. The workshops willbe followed followed up with opportunities for participants to meet at DIMACS to pursue the research direc-
tions identified. The workshops will cover the topics"Algebra and the Theory of Computing,"
"Computational Complexity, Entropy, and Statistical Physics," "Wavelet Analysis and Digital Ge-
ometry Processing," and "Algorithmic and Quantitative Aspects of Real Algebraic Geometry in
Mathematics and Computer Science."